Collaborative Research: Modeling and Computational Analysis of Cell Communication in Drosophila Ogenesis

Muratov
0211864
Shvartsman
0211755
In this collaborative project the investigators combine
mechanistic modeling, computational analysis, and experimental
techniques of developmental genetics to analyze cell
communication networks in the development of the Drosophila egg
(oogenesis). They focus on the patterning events mediated by the
Epidermal Growth Factor Receptor (EGFR), during which a localized
source of the EGFR ligand is modulated in space and time by a
distributed network of autocrine loops to produce a biochemical
blueprint specifying the formation of a pair organ. The
investigators develop mechanistic models of EGFR signaling in
Drosophila oogenesis. These models are necessary to directly test
consistency of the proposed regulatory mechanisms, to make the
experimentally verifiable predictions, and to guide the design of
future experiments. The models should explicitly account for the
key components of the EGFR system: the receptor, four of its
ligands, ligand processing proteins, and intracellular signaling
cascades. The nonlinear reaction-transport models of spatially
distributed EGFR signaling networks are analyzed using a
combination of numerical simulations, asymptotic techniques, and
bifurcation analysis. The tests of model-based predictions rely
on experimental advantages of Drosophila genetics.
Signaling through the Epidermal Growth Factor Receptor EGFR
is essential in a number of developmental processes across
species, from fruitflies to humans, and is extensively studied at
the molecular level. The main goal of the project is to develop
modeling and computational tools necessary to describe
reaction-transport processes in developing epithelial layers. In
the context of Drosophila, the investigators aim to capture a
large number of phenotypic transitions in eggshell morphology
that have been observed following quantitative manipulations in
the doses of the regulatory genes. This leads to a class of
mathematical problems that are also relevant in other biological
and physico-chemical settings. Given the highly conserved nature
of EGFR systems, it is possible that the proposed analysis of
patterning events in Drosophila oogenesis may be used to
understand the role of EGFR in the formation of branched
epithelial structures in the development of higher organisms. The
project has a significant educational component: it brings
together and trains students and postdocs in biology, engineering
and mathematics.